PRF: The Molecular Genetics of Acoustical Communication in the Cricket Genus Laupala

The development of new molecular genetic and statistical techniques provides the opportunity to identify the number and genomic position of quantitative trait loci (QTL's) through linkage associations of variable molecular markers. These new techniques will be applied to a hybridization study of two species of crickets in the genus Laupala: L.paranigra and L.kohalaensis. These species posess an extremely simple acoustical communication system. Phenotypic variation in female phonotaxis will be associated to specific QTL's in a hybrid backcross design. These results will be compared to those obtained from another study on the male calling song in order to test competing models of genetic architecture of character covariation.